1998 Midwest Thermodynamics and Statistical Mechanics Conference, May 18 - 19, University of Notre Dame

ABSTRACT CTS-9809829 J. Brennecke/U. of Notre Dame The purpose of the Midwest Thermodynamics and Statistical Mechanics Conference is to bring together researchers in the areas of thermodynamics and statistical mechanics in the midwest area for the exchange of ideas and most recent research results. It is particularly designed as a platform for young researchers (graduate students and young faculty members) to gain confidence and experience in presenting and discussing their ideas and research accomplishments. The 1998 Conference will be held May 18-19, 1998 at the University of Notre Dame. The four sessions include: Macromolecular Adsorption, Supercritical Fluids and Modeling and Theory. The conference participants will come from the fields of chemical engineering, chemistry, material science and physics. ***